Support for Symposium on Online Education

Anthropology (81)
This project is an invited session at the American Anthropology Association national meeting during November 15-19, 2000. It is sponsored by the General Anthropology Division and features ten papers and demonstrations of online courses along with critical discussion of computer-mediated teaching and learning. The session is entitled: "Internet Dreaming: Information Technology and the restructuring of Post-Secondary Education". This session will serve the purpose of providing maximum exposure to new developments in computer mediated teaching and learning in undergraduate anthropology.